Grant for Exploratory Research - Monte Carlo-Gaussian Importance Sampling Evaluation of Real Time Feynman Path Integrals

The Theoretical and Computational Chemistry Program in the Chemistry Division is supporting research by Prof. Donald Kouri at the University of Houston on a new approach to quantum dynamics calculations. This is a collaborative project with Prof. David Hoffman of Iowa State University whose effort is also being supported by the Division. The Feynman path integral method is used to replace the customary calculation of matrix products, eigenvalues, and inverses which scale very rapidly with system size. Gaussian importance sampling is used to produce a manageable variance in the Monte Carlo integral. The goal is to make possible fully quantum mechanical treatment of scattering systems of a larger size than previously possible. %%% Numerically exact quantum mechanical methods of analyzing chemical reactions have in the past been limited to systems containing no more than three atoms, at least one of which must be hydrogen. This project is testing a new computational technique which offers promise of permitting such calculations on larger systems and, more generally, can be used in studying other quantum mechanical collisional processes.